Effect of Environmental Stress and Inbreeding on Multilocus Heterozygosity-Fitness Relationships

Individual organisms with high levels of genetic variation often show superior physiological performance in contrast to individuals with lower levels of genetic variation. It has proven extremely difficult, however, to predict the precise environmental circumstances under which high genetic variation is related to superior abilities. This is in part due to a lack of understanding about the interaction between environmental, genetic and physiological effects, and also to a lack of understanding about the specific mechanisms responsible for these relationships. This project will examine the interaction between environmental stress, genetic variation and performance in a model population of earthworms. Earthworms were chosen because of their short life cycles, their availability in the large numbers necessary for this work, and their importance in terrestrial ecosystems. Experiments will involve both short term (one generation) and long term (many generations) of environmental stress. The proposed mechanisms responsible for the phenomena will be investigated using genetic experiments. This will be the most extensive characterization of the relationships between genetic variation and physiological performance in any organism to date. The research will help to identify genetic attributes common to all species that promote optimal performance under environmental stress. //